REU: REU CRISP (Computer Research Internship Scholastic Program)

EIA -9912218
Manoj, Franklin
Shuvra Shikhar, Bhattacharyya
University of Maryland, College Park

Research Experiences for Undergraduates: REU CRISP (Computer Research Internship Scholastic Program)

The Computer Research Intership Scholarstic Program (CRISP) incorporates research projects in the following areas of research: Computer Architecture, Embedded Systesm, Software Engineering, Real-time Systems, VLSI Design, CAD for VLSI, LowPower Design, and Optimizing Compilers. In addition to work in the lab, students participate in weekly meetings that include technical presentations from leaders in computers and visits to local companies. These activities are done jointly with two other undergraduate research programs currently undertaken by the department under the MERIT (Maryland Engineering Research Intership Teams) pogram. The professional d development activities consist of seminars/workshops on technical writing, oral communcations, graduate educations, academic careers, industrial careers, and professional ethics. At the end of the summer, representatives from indsutry serve as judges for the MERIT fair where students from the CRISP program and other similar research experience programs present the results of their research and compete against each other for the best project award.